RIA: An Automated Modeling Program for Electromechanical Systems

9410144 Wilson In this project, an analytical modeling methodology and automated modeling tool is developed for electromechanical systems. The methodology acknowledges and incorporates the inherent uncertainty involved in models. The tool accepts a component- based description of an electromechanical systems as input. These component descriptions, including tolerances, are mapped in to models whose perameters have tolerances, uncertainty bounds are determined for both component and system models, and optimal order of system models in determined. In conventional models, component dimensions and material constants are approximate, whereas model coefficients are assumed constant. ***